Innovative Programming Technology for Embedded Systems

Innovative Programming Technology for Embedded Systems

This is a proposal to provide innovative programming technology for
designing and implementing reliable distributed embedded systems. The proposal
addresses a critical generic problem and a major opportunity. The generic
problem is that the research community does not know how to scale logical
methods that are known to improve programs and small systems to the task of
improving larger systems. The opportunity is that new methods of factoring are
possible for embedded systems, and new kinds of specifications are important.
This project approaches the problem/opportunity by creating advanced logical
methods and tools to structure embedded systems in a new way and to draw on
relevant formal knowledge about them to accelerate both the design and coding
process and to improve the quality of the system code and its documentation.

The project will add extensive formal knowledge to a logical programming
environment (LPE) and use it to generate system components that are correct by
construction and to combine components based on semantic methods. The
semantics supports formal classes and aspect-oriented programming. One test
case for the new methods is a particular distributed embedded system called
MediaNet -- a system for processing various media (audio, video, text) over a
distributed computing network to adaptively respond to quality of service
constraints.

The project will use mathematical knowledge about media streams and transition
systems to precisely formulate design requirements and component functionality.
Quality of service constraints will be incrementally added to the functional
specifications and used to automatically modify the proof and the extracted
code so that these requirements are met. This is a very high level example of
formal aspect-oriented programming and proof reuse.

The library of formal knowledge about the system will be organized as a
mathematical theory. That organization draws on concepts about stream
transformers, the distributed network of machines, quality of service
properties and communication services. An expressive logic will be used to
state properties of the system and keep track of logical dependencies among
system components.

The project team has considerable experience working together building and
supporting distributed communications systems by specifying and verifying
communication protocols and optimizing them using formal methods.